RUI: Low Mach Number Flows in an Infinite Domain

9321728 de Pillis The Navier-Stokes equations are central to the modeling of ocean currents, weather patterns, jet engine noise, waves generated by the movement of an object through a fluid, and many other physical phenomena. The Navier-Stokes equations can be used to model compressible, slightly compressible, and incompressible fluid flow. The equations are complicated enough that numerical as opposed to analytical solution methods must be employed. The numerical calculation of each type of flow (e.g., compressible versus incompressible) presents its own particular difficulties. In this project, the focus is on the efficient determination of the solutions to the slightly compressible Navier-Stokes equations in an infinite domain. These solutions represent low Mach number flow, and are pivotal to the modeling of sound propagation. In the case of slightly compressible flow, at least two time scales are present in the solutions. The presence of the two or more time scales generally makes efficient numerical calculations difficult to achieve. In this project, however, the presence of multiple time scales is actually used advantageously. Recent research has shown how certain solutions containing multiple time scales can be expanded into a sum of simpler solutions (i.e., solutions containing essentially one time scale). In the analytic portion of this project, the general behavior of this sum of solutions is examined. The goal of this project is to develop, implement and analyze a numerical solver which makes use of this understanding of the behavior of these solutions. The efficiency and accuracy of this new implementation will be compared with that of existing numerical schemes. This solver is expected to be an improvement over existing solvers in efficiency, accuracy and ease of use.